NSF/NIST Faculty Research Program

ABSTRACT CTS-9527385 McLinden, M.O. Magee, J.W. NIST This proposal is for an Interagency Transfer of Funds from NSF to NIST for the Faculty Internships Program for Sanford A. Klein, University of Wisconsin, and Horacio Durate, Texas A&M, at Kingsville.